Frontier Space Physics Research at the Millstone Hill Geospace Facility

The Millstone Hill Geospace Facility provides observations of the near-Earth space environment for research on space plasma processes. A wide range of phenomena occurs in this region that can have adverse effects on critical infrastructure including communication, navigation, and power distribution networks. The mission of the facility is to enable basic scientific research on the structure and dynamics of the Earth's upper atmosphere, ionosphere, and magnetosphere. The facility has unique capabilities that include the large-aperture high-power Millstone Hill incoherent scatter radar, the Global Navigation Satellite System based total electron content analysis system for worldwide observations, and the Madrigal Geospace Data System. The project will train and motivate a new generation of space and radio scientists, engineers, and technicians through focused research opportunities, community interactions, and general public outreach.

Millstone Hill Geospace Facility will support ionospheric and upper atmospheric research at the frontiers of geospace science. The expected advances include (1) deeper understanding of subauroral plasma and neutral dynamics; (2) investigations of links between the lower and upper atmosphere during periods of anomalous stratospheric polar vortex activity; and (3) studies of multi-scale structure of traveling ionospheric disturbances. The project will also maintain and operate the Madrigal Geospace data system, a data repository for a wide range of upper-atmospheric observations.